NSFNET Connection for Chaminade University

9405126 Hernandez This project connects Chaminade University of Honolulu to the Internet over a T1 (1.544 million bits per second) line. Faculty and students at the school benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.